Our Sun-Earth Environment: An Exhibit Project for the Space Sciences

The proposed work is for the design and fabrication of an exhibit called "Electric Space: Our Sun-Earth Environment" to be placed near the Planetarium in the National Air and Space Museum. Another exhibit is planned in years 2 and 3 of this project which will travel to science and technology centers throughout the United States. The goal is to bring to exhibit viewer to a better understanding of space science as a comprehensive,interdisciplinary and exciting field of science. School children and the general public alike will be invited to experience space science as an approachable, creative activity through illustrating various facets of solar-terrestrial science in scientifically sound yet captivating materials, including interactive media. The overarching theme of the exhibits will be to clearly show the importance of the sun and its impact on our near-Earth environment. Secondary themes emphasize that space is not empty and can be very hazardous to people and technological systems; and that the entire geospace environment is highly coupled and interconnected. Thus, these exhibits will focus on processes rather than just facts.